Creating an Undergraduate Modern Optics Laboratory in Lasersand Laser Spectroscopy

The Physics Department will create a student laboratory which will introduce undergraduates to fundamental concepts and current research techniques in the field of modern optics. In the first half of the course students will build up a basic working knowledge of the principles of lasers by constructing both a pulsed dye laser and a continuous wave helium-neon laser cavity. In the second half of the course students are given the opportunity to carry out detailed experiments, concentrating on a specific area in modern optics. Initially three topics, acousto-optic modulation, molecular spectroscopy, and holography/optical information processing will be offered. Subsequently, additional topics such as fiber optics and nonlinear crystal optics are to be developed.